Polymer Colloids Conference, June 30-July 4, 1986, at The Johnson Foundation, Racine, Wisconsin

Travel assistance is provided for 10 foreign experts and 10 U.S. graduate students to attend an International Conference on Polymer Colloids to be held in Racine, Wisconsin. The objectives of the conference are to discuss recent advances in polymer colloid research and to formulate recommendations for future research.